CISE Research Instrumentation: Experimental Study of Multiple Cooperative Mobile Manipulators

Two force control robots with interfaces and floating point accelerators will be obtained for use in projects dealing with coordination of mobile manipulators. In particular, for: * Environment exploration force and motion control. * Locomotion and manipulation coordination. * Multiple mobile manipulator coordination. These two compact six degree-of-freedom manipulators will be mounted on existing mobile platforms so that mobile coordination may be examined.